Consortium for Minorities in Teaching Careers Collaboration for Excellence in Math and Science Teacher Preparation.

The Consortium for Minorities in Teaching Careers (CMTC) requests funds for a planning grant for the development of a comprehensive proposal that will increase the number of minority students to enter the teaching profession with mathematics and science specialties. The consortium is made up of ten partner institutions of higher education which include Historically Black Institutions and Hispanic-Serving Institutions that have strong programs for minority teacher preparation. CMTC was funded by FIPSE to conduct a program for precollege students who are considering careers in teaching. The present request is specifically for planning a program for teacher preparation with a strong emphasis on the preparation of minority teachers. The funds will be used for travel to meetings in order to plan the comprehensive proposal. Cost sharing by CMTC will be approximately 25% of the NSF funds.